NSF Student Travel Grant for the 26th IEEE International Symposium on High Performance Computer Architecture (HPCA 2020)

This award will support approximately 25 students to attend 2020 International Symposium on High-Performance Computer Architecture (HPCA) to be located in San Diego, CA, USA from February 22 - 26, 2020. HPCA is widely recognized as one of the top-tier conferences in the field of Computer Architecture and has attendees from academia, both students and faculty, and from the industry. Students who attend the conference will be exposed to intellectually stimulating research by attending the many talks, panels, keynotes, and poster presentations at the conference.

Students receiving travel grants through this award will learn the importance of good communication skills as well as learn about what it takes to conduct high quality research, through interactions with speakers, faculty, and peer student groups. The award also seeks to enhance the diversity of the attendees, thus maintain a balance between underrepresented and other groups among the participants supported from the grant.